Regional Network Provider for NSFNET and the NREN Program

9321083 Zitter This award assists the NevadaNet Regional Network in obtaining connectivity to other regional networks and to the rest of the Internet. The award, made under the guidelines published in NSF Program Solicitation 93-52, partially funds two T-1 connections. Anticipated duration of the award is four years.